RTA-93 - Fifth International Conference on Rewriting Techniques and Applications; Montreal, Canada; June 16-18, 1993

The notion of term rewriting was conceived in the late sixties starting from a seminal paper by Knuth and Bendix. It later evolved into a powerful tool bridging between programming languages and logic in computer science. In addition to extensive theoretical results, it has been applied to symbolic and algebraic computation, automated deduction, programming languages and compiler optimization, termination and correctness of programs, grammars, lambda and combinatory calculi, and has been the catalyst in the inception of constraint solving and unification theory. In recent years studies have also been initiated in using rewriting as a model for concurrency, as well as a viable solution to combining functional and logic programming paradigms. Due to the popularity of the subject, there has been an increase in graduate students studying in areas related to term rewriting. This grant is to defray cost of participation for about fifteen U.S. computer science graduate students.